U.S.-Japan Seminar: Electromagnetic Field Effects Caused by High Voltage Systems June 1994/Sapporo, Japan

9315416 Sebo This awards supports the participation of seven U.S. scientists and engineers in a U.S.-Japan Seminar on Electromagnetic Field Effects Caused by High Voltage Systems, scheduled for June 1994 in Sapporo, Japan. The co-organizers are Professor Stephen Sebo, Department of Electrical Engineering, Ohio State University, and Professor Katsuo Isaka, Department of Electrical and Electronic Engineering, University of Tokushima, Tokushima, Japan. In addition to the U.S. and Japanese participants, scientists from Malaysia and Sweden will take part in the seminar. The seminar deals with a fundamental and complex scientific subject. Many key elements of highly advanced social system are sensitive to electromagnetic interference. The electric power generation-transmission-distribution systems, computer-communication-information-control systems of any kind, radio and television stations, national security, and social institutions are examples for such elements. Electric power systems themselves are also causes of electromagnetic interference. The seminar will address these main subjects: (1) modeling, characterization, and evaluation of the electric power system related to electromagnetic fields; (2) studies related to the environmental effects of high voltage transmission systems, including possible biological effects, human perception, and telephone system performance; and (3) measurement techniques of electromagnetic fields covering a broad frequency range, including procedures and standardization. ***